A Dissemination Process for NSF-Supported Projects

The journal of Chemical Education is initiating a monthly feature column devoted to undergraduate chemical education projects funded by the National Science foundation. Three columns annually contain announcements of awards in the Instrumentation and Laboratory Improvement, Undergraduate Course and Curriculum, and Undergraduate Faculty Enhancement Programs. The remaining nine monthly columns will feature 2-3 exemplary projects which are either in progress or recently completed.